On the Behavior of Solutions of Einstein's Equations and Other Geometric Nonlinear Partial Differential Equations

Einstein's gravitational field theory (general relativity), besides
providing the most accurate current model for the study of gravitational
physics on the astrophysical and cosmological scales, is also the source of
a rich collection of mathematically interesting questions. This award will
support a program of research which focusses on some of these, including
the following:
1) Study of the behavior of the gravitational field very close to the big
bang in cosmological solutions of Einstein's equations. Remarkably, it
seems that even for solutions which appear to be very different some time
after the big bang, the behavior close to the big bang is very similar: It
oscillates in a characteristic way. We can show this, numerically or
analytically, for simple families of solutions, and we hope to show it more
generally.
2) Construction of new sets of initial conditions for the gravitational
field which juxtapose two known sets. This is not easy because the initial
conditions must satisfy certain nonlinear partial differential
equations--the Einstein "constraints". We are developing techniques for
smoothly joining ( or "gluing") two solutions of the constraints into a
single solution.

The first of these projects, although it ignores any quantum gravitational
effects, could be very useful in our drive to understand the nature of the
very early universe. The second is of interest both mathematically and
physically. The mathematical interest stems from the fact that the Einstein
constraint system is among the most complicated to which gluing studies
have been applied. The physical interest comes from the possiblility of
using the developed techniques to set up initial data for black hole
collisions and other astrophysical problems which are being intensely
studied numerically in anticipation of future data from LIGO.